NGS: Support for the Third International Workshop on Active Middleware Services

EIA-0121099
Salim Hariri
University of Arizona

NGS: Support for the Third International Workshop on Active middleware Services

This workshop will provide support for invited speakers and students to attend the Third Annual International Workshop on Active Middleware Services, being held on August 6, 2001 in conjunction with the 10th IEEE International Symposium on High Performance Distributed Computing in San Francisco, CA. This workshop will bring together researchers to discuss systems software issues on middleware for supporting distributed, heterogeneous, networked and grid environments.